New Transition Metal Based Ferroelectric Liquid Crystals

This research is concerned with the formation of noncentrosymmetric materials with ferroelectric properties. These materials are based on a new class of liquid crystalline compounds which have pyramidic transition metal complexes as core group. The orientation of these materials by the application of electric field will be explored as a route to noncentrosymmetric solids with a macroscopic electrical polarization. The materials are ferroelectrics if polarization persists after electric field is removed. Because polarization is sensitive to pressure and temperature, ferroelectrics possess piezoelectric and proelectric properties. Mechanism for polarization reversal, and experiments for their elucidation are proposed. Also, methods are proposed for the formation of electro- responsive polymers that exhibit large field-induced deformation. The ultimate aim is to develop field-and pressure-responsive conductors.